Workshop:Lie groups, Lie algebras, and their Representations

Principal Investigator: Geoffrey Mason
Proposal Number: DMS - 0245225
Institution: University of California-Santa Cruz

ABSTRACT

Lie Theory is a central discipline in modern mathematics and plays a key role in diverse areas such as harmonic analysis, differential geometry, number theory, algebra and mathematical physics. The co-principal investigators will utilize funding to continue and enhance the Western regional workshop series "Lie Groups, Lie Algebras and their Representations" which is devoted to Lie Theory and which has been flourishing for over ten years.

The series of weekend meetings that are the main focus of the workshop will provide a unique opportunity for graduate students and junior researchers to become acquainted with research and researchers in the western part of the US who work in Lie Theory. The co-principal investigators will encourage and facilitate collaborative research, especially between junior and senior researchers, and provide opportunities for advanced graduate students to confer with experts at other universities.